Comparative Marine Chemistries of Rhenium, Platinum Group Metals and Their Periodic Table Neighbors

Rhodium and osmium are the only stable elements not yet analyzed in seawater. This is a consequence of their predictably very low concentrations (pg/l) and of the diffi- culties of analysis. Their marine chemistries, compared to other platinum-group metals in the periodic table may remarkably increase our understanding of complexing and redox reactions in the oceans. Until we have a broad understanding of their disposition within oxic and anoxic marine sediments and marine waters, we cannot pursue this matter. Dr. Goldberg proposes to develop not only analytical techniques for these two metals but their analyses in seawaters and semiments previously assayed for other platinum group metals and their periodic table neighbors. Analytical methods for both elements will utilize graphite furnace atomic absorption spectrometry. Radioactive yield tracers, Rh-102 and Os-185, will be prepared from cyclotron bombardments of Ru-102 and Re-185 and will be used in all analyses. These two metals will be analyzed in seawaters to depths of 4000m off the coast of California, in ferromanganese minerals, pelagic sediments, coastal sediments phosphorites and hydrothermal sulfides. Their redox state (and perhaps speciation) in seawaters will be sought from their enrichments, or lack thereof, in minerals that form under oxidizing and reducing conditions.